Student Travel Support for Robotics: Science and Systems 2008

This proposal will enable US students to attend an important international forum for intellectual exchange in the robotics community, namely the fourth Robotics: Science and Systems conference. Exposure to the state-of-the-art in global research and to the leading ideas in the field is important for the training and education of tomorrow’s leading scientists. The single-track structure of this forum will enable students to personally interact and establish connections with the international leaders in the field. Attendance at this conference can be expected to positively affect the research of many US students. The exposure to state-of-the-art research and interactions with world leaders in robotics will be inspirational and provide new intellectual impulses to the research conducted at academic institutions in the US.